Oceanographic Instrumentation, R/V WEATHERBIRD II, 1997

9619182 Hansell This award to Bermuda Biological Station for Research, Inc., will provide a new CTD (conductivity, temperature, depth) instrument, a new pressure sensor, and other instrumentation for use on the research vessel Weatherbird II, operated as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist ocean researchers conduct studies in the North Atlantic Ocean in 1997 and in future years, and will be especially useful in maintaining an ongoing time series of ocean property measurements at sites near Bermuda for studies of global change. ***